Evaluating Global-scale Distributed Systems using Scalable Network Emulation

The power of the national information infrastructure has expanded
enormously over the last decade. Commercial Internet service and
government-sponsored advanced networks for research and education
support a range of national priorities. Unfortunately, rapid
development and deployment of robust, adaptive network software is
hampered by a fundamental obstacle: prototype systems are difficult to
evaluate due to scale and complexity of their host environment---the
Internet.

This proposal seeks to remove this obstacle by constructing a software
environment for evaluating prototype network software systems under
realistic, controlled, repeatable conditions through scalable Internet
emulation. The proposed system, ModelNet, emulates a wide-area
network on a high-speed cluster, enabling researchers to deploy
unmodified software prototypes in a configurable Internet-like
environment and subject them to faults and varying network conditions.

This research will first investigate techniques for scaling network
emulation to thousands of unmodified applications with aggregate
communication bandwidth of over 10 Gb/s. Second, it will enable the
community to leverage large-scale network emulation as a primary
technique for rapidly developing and evaluating next-generation
Internet services and applications. Finally, the research will seek
fundamental improvements in network service robustness and performance
by providing a controlled environment for subjecting network services
to a range of realistic deployment scenarios.